The Role of Prey Capture Thread in the Origin and Evolution of Spider Orb-webs

9417803 Spiders are unique in their use of orb-webs to capture prey. Orb-weaving spiders and their webs have attracted the attention of biologists who study behavior, ecology, and evolution as well as the interest of biochemists and molecular biologists who study the properties of the silk spiders manufacture to build those webs. The ability of an orb-web to capture prey depends in large part on the stickiness of its prey capture threads. Without these threads, many insects that strike a web would escape before a spider could run to and subdue them. Prey capture threads also help absorb the impact of prey that strike a web and, in this way, strengthen the web. The properties of these prey capture threads, however, have received very little study. This research will examine changes in the properties of prey capture threads and determine how they are associated with the origin, evolution, and operation of spider orb-webs. The most primitive orb-webs are horizontally oriented and contained dry, fuzzy capture threads called cribellar thread. More advanced and diverse groups of orb-weaving spiders produce vertically oriented orb-webs that contain viscous adhesive capture threads. This research will measure the stickiness, tensile strength, and extensibility of the prey capture threads from webs that are less highly organized than orb-webs, orb-webs containing cribellar thread, and orb-webs containing adhesive threads. The research will test the hypotheses that the precise and parsimonious architecture of orb-webs places a premium on the stickiness, tensile strength, and extensibility of capture threads; and that these characteristics become even more critical in vertical orb-webs whose orientation requires them to absorb greater forces because they intercept prey that fly faster. It will also show how stickiness of cribellar prey captur e threads is related to a spider's spinning anatomy and determine whether changes in spinning anatomy facilitated the origin of the orb-web. The information and insights gained from this comparison will answer major questions about the evolution of orb-webs, more fully characterize the functional properties of spider silk, and foster a more integrated view of spider web composition, structure, and function. These insights may ultimately be useful in the design of composite materials and adhesive or impact-absorbing structures.